Acquisition of a High-Resolution Differential Scanning Calorimeter

Differential scanning calorimetry (DSC) is a thermodynamic technique and as such is powerful, yet noninvasive, in studying either the thermotropic phase behavior of lipids or the unfolding or folding of globular proteins upon heating or cooling. In this application, funds to purchase a high-resolution differential scanning calorimeter are requested. This instrument must have the capability of performing in ascending and descending thermal scans over the temperature range of -40 to 100oC. The proposed research projects can be grouped into two categories. In the first, the heating and cooling thermograms of various binary lipid mixtures will be determined. The phase diagrams of these mixtures will then be constructed based on these thermograms, and the lipid-lipid interactions in the bilayer phase will be analyzed quantitatively. The lipid mixtures to be investigated include unsatured phosphatidylethanolamine (PE) and phosphatidylcholine (PC) and their headgroup derivatives with saturated mixed-chain PC, various PC with glycospingolipids, and glycosphingolipids/cholesterol mixtures. The second category concerns calorimetric studies involving proteins. The stability of ubiquitins obtained from various selective mutants will be investigated. The interactions of cytochrome b5 with various phospholipids will also be studied. Finally, the rhodopsin unfolding in a variety of phospholipid bilayers will be studied.